Transport of Gases in Inert and Reactive Asymmetric Membranes Fabricated by the Langmuir/Blodgett Technique

This research involves design, fabrication, and characterization of novel systems of asymmetric membranes for gas separations. These inert and reactive membranes will be created by the ordered deposition of polymeric monolayers via the Langmuir/Blodgett (l/B) technique onto porous membranes. Reversible reactive carriers will be incorporated into the ultrathin L/B films to increase the transport of specific species. Ultrathin reactive asymmetric membranes do not presently exist. The completed films will be structurally characterized by infrared and far infrared spectroscopy. Mass transport studies will be performed to determine the species selectivity; permeation properties will be correlated with the spectroscopic structural studies to elucidate the transport mechanism in both inert and reactive membranes. Two well characterized polymers will be used for the L/B films: polyacrylates and polymethacrylates. The asymmetric porous membranes are Gore-Tex and Celgard. Amines are incorporated into the deposited L/B films for reactive (or facilitated) transport of acid gases hydrogen sulfide and carbon dioxide). Gases to be studied for diffusivities are helium, oxygen, nitrogen, methane, sulfur hexafluoride, hydrogen sulfide and carbon dioxide. The design, fabrication, and structural and transport characterization of asymmetric membranes produced using ultrathin ordered polymeric films will have a significant impact on gas separation. The opportunity exists to create membranes with high transport properties for specific gas species while excluding transport of others. In particular, the separation of acid gases from product gases is an important industrial application. The research described in this proposal is a foundation toward the development of molecular engineering approaches to the design and fabrication of highly specific asymmetric membranes.